Annual Absolute Velocity Structure Along AR7W in the Labrador Sea Since 1995

Annual Absolute Velocity Structure along AR7W in the Labrador Sea since 1995

This project involves processing and analyzing lowered and shipboard acoustic
Doppler current meter (LADCP, SADCP) velocity data that have been collected
along a transect of the Labrador Sea ("AR7W"), usually once each year in
spring/early summer, since 1995. This transect crosses the southern part of
the region of strong convection that occurs most winters in the Labrador Sea.
Hydrographic data were also collected on these cruises, allowing for the
computation of absolute velocity fields for the transects in two ways: using
the ADCP data alone, and using it in conjunction with the hydrographic data.
In addition, the combination of absolute velocity and hydrographic data can be
used to evaluate the heat flux across this transect. The goals of this
project, using these results, are: 1) to quantify the relationships between
the strength of the circulation, the strength of convection, and forcing
parameters; 2) to evaluate the various components of meridional heat transport
across AR7W and relate them to deep convection and boundary current strength;
and 3) to examine the continuity of the Labrador Current/Deep Western Boundary
Current around the Grand Banks. Also, as part of this project, the LADCP
instrument will continue to be sent on these annual cruises, so that this time
series can be extended through at least 2010: this is important because
interdecadal variability in the region is expected to be significant.

The processed lowered ADCP datasets will be made public in a timely manner,
through a website, while the shipboard ADCP data will be submitted to both the
national Canadian archive as well as the NODC JASADCP. The Labrador Sea
continues to be an area of active research, and indeed our project complements
other programs recently funded for this geographical region. Furthermore,
although we plan to address specific scientific questions with this dataset, the
public availability of the velocity observations may stimulate additional
research opportunities for scientists and students in this and related fields.